The Powers of Ten in Time

The videodisc-based exhibit, the Powers of Ten in Time, will allow museum visitors to explore the unseen world of natural change - events that occur too quickly or too slowly to be perceived. Through the use of a touch screen and interactive software, users will be able to, in effect, speed up or slow down timeto witness changes that lie outside of the limits of human time perception. Visitors will see scenes such as a forest recovering after a fire, a wall of earth crumbling from erosion, tides coming in and out, the intricate motions of complex machinery and molecules colliding and reacting to produce fire. The videodiscs will contain more than 100 short video segments depicting a wide range of phenomena. We will use time-lapse footage, slow-motion clips and animations to show changes occurring over time periods form 300,000,000 to femtoseconds. Not only will museum visitors be able to watch these video segments at their own pace and in order they choose, they will also be able to learn more about such phenomena through on- screen textual and graphical explanations. The goal of the project is to engage museum visitors with captivating photographic segments, explain the phenomena shown with supplemental text and graphics, and stimulate them to look at the world in a new way - not just with their eyes, but with their minds and imaginations.